Cryptography and Privacy Conference, Carnegie Endowment for International Peace, June 7, 1993

9315013 Rotenberg The Computer Professionals for Social Responsibility (CPSR) Washington Office of the Computer Professionals for Social Responsibility (CPSR) has organized important conferences on emerging cryptography and privacy policy issues. These conferences are critical to the continued effectiveness of the Internet and all the networks that interconnect to it. CPSR will bring together all new stakeholders in the networking enterprise including private companies, public interest organizations, and federal agencies to discuss the impact of federal policies on the deployment of cryptography and the development of privacy standards. The CPSR requests partial support for a workshop to plan a framework for these new privacy standards for achieving electronic privacy. This conference will bring together many academic and government representatives including some European experts in cryptography technology.